Yamabe Memorial Symposium, September 20-22, 2002, University of Minnesota

DMS-0205776
J. Wang, R. Gulliver, N. Leung
University of Minnesota

This award provides partial support for active research mathematicians
with limited means of support to attend and participate in the
Yamabe Memorial Symposium to be held at the University of Minnesota
in the fall semester of 2002. The main speakers will include
Peter Li, Richard Hamilton, Fang-Hua Lin and Bennett Chow.
These talks are expected to be comprehensible introductions to
recent high-level research on aspects of geometry and analysis.
Further information, including an updated list of main speakers,
is available at
http://www.math.umn.edu/~gulliver/confs/yamabe.html.